Support for the Advanced Seminar on Paleodietary Research at the University of California, Santa Cruz

This award provides partial support for the 6th Advanced Seminar on Paleodietary Research, to be held on the campus of the Univ. of California, Santa Cruz in September 2001.The Advanced Seminars have been the premier forum for high-level discussion
among anthropologists, geochemists, paleobiologists, and ecosystem
scientists about the ways that fossil chemistry can be used to reconstruct
the ecology, physiology, and migration patterns of humans and other
mammals. Approximately 30 seminar participants will explore the diverse
chemical approaches to hominid paleobiology. The list ranges from senior
scientists to graduate students and from archaeologists to chemists,
including speakers from 8 nations. The speakers will examine the following
general topics: 1) how biological isotope signals are influenced by the
effects of growth dynamics and post-mortem alteration, 2) how isotopes can
be used to study the scale and pattern of human mobility, 3) new isotopic
tools for studying hominid diets and habitat use, and 4) how physiology and
nutritional status are reflected in the isotope composition of fossils.
For example, several speakers will focus on the ecology and diet of
australopithecines that are several million years old, determining the
extent to which these relatives of modern humans consumed meat versus
plants. Another set of speakers will focus on the diets and food
processing technologies of modern humans over the past few thousand years.
A number of speakers will examine shifts in human migration patterns and
nutritional status, looking at the interplay between climate and cultural
change as causal agents. As has been the case with all of previous
seminars, we will publish a set of papers resulting from the presentations,
preferably as a special issue of an archaeological journal. The
publication will summarize important advances, making results available in
a centralized format to both specialists and non-specialists. If the past
is any guide, the chemical approaches to human and animal ecology,
biogeochemistry, and environmental reconstruction explored in the
publication will extend to workers in many other fields. For the
past 30 years, anthropologists and archaeologists using chemical methods
have been blazing a trail, a trail that has recently been picked up by
wildlife biologists, terrestrial paleoclimatologists and global change
researchers. The 6th Advanced Seminar on Paleodietary Research should
continue this tradition.